Thermal Analysis in Undergraduate Analytical, Physical and Polymer Chemistry Laboratories

This instrumentation for Thermogravimetric Analysis and Diffrential Scanning Calorimetry will equip undergraduate laboratories in analytical, physical, and polymer chemistry at the University of Florida. It will be used to characterize and quantify mixtures of inorganic materials in an instrumental analysis laboratory incorporating physical chemistry and physical polymer students.